Conference: 11th International Conference on Analysis and Optimization of Systems. To be held June 15-17, l994 in France.

9414256 Krogh The 11th International Conference on Analysis and Optimization of Systems organized by INRIA will be the second specialized conference of the series. This time, the specific field covered will be discrete event systems (DES). It can be considered also s the second WODES/CODES conference (series of Conferences on discrete event systems). This conference is aimed at engineers and mathematicians working in the field of Automatic Control, Operations Research and Statistics who are interested by the modeling, analysis and optimization of discrete event systems. Many formalisms have been developed to describe such systems. The comparison of the different mathematical approaches and the global confrontation of the mathematical approaches with the applications are the main goals of the conference. ***